Multiple-Query Processing and Caching in Deductive Database Systems

The implementation and performance of intelligent support mechanisms for query processing and optimization in deductive databases will be investigated. First, the efficient evaluation of multiply-defined rules will be examined. The evaluation of such rules results in the processing of more than one relational query. In contrast to the traditional single command-at-a-time optimization multiple-query optimization techniques can reduce the cost of processing a set of queries through sharing of common execution paths. The second major target is the idea of storing results of previously processed rules in secondary storage (caching). Using a cache, the cost of processing a query can be reduced by preventing multiple evaluations of the same rules. Various techniques for implementing efficient caching mechanisms, including replacement policies and validation schemes will be evaluated. Addressing the above issues successfully will improve the ability of future deductive database systems to support non- traditional application areas, like engineering environments and artificial intelligence, which require the use of advanced control mechanisms such as rules.